RUI: Characterization Problems, Outer Models, and Forcing

ABSTRACT

The investigator will continue his research in enumerative and
algebraic combinatorics. He feels that there are many opportunities
for strengthening the myriad connections between combinatorics and
other branches of mathematics. He will investigate how recent
breakthroughs in the theory of total positivity can be applied to open
problems concerning such topics as counting faces in cubical polytopes
and counting stable sets in clawfree graphs. The investigator will
also continue his research on the combinatorial properties of convex
polytopes that have arisen in such areas as statistical inference and
the representation theory of semisimple Lie algebras. In particular,
he will investigate further some convex polytopes related to Kostant's
partition function. He will in addition pursue a number of
miscellaneous problems arising in the work of Kac, Kontsevich,
Varchenko, and others.

The field of combinatorics was first systematically investigated in
the 1960's and only recently has reached a high level of maturity. It
is an area of mathematics that has close connections with many other
subjects, ranging from algebra, geometry, and statistics within
mathematics, andcomputer science, high-energy physics, chemistry, and
most recently biology without. The investigator's primary interest is
the development of connections between combinatorics and other areas
of mathematics. He will investigate a number of problems that would
continue the development of the connections between combinatorics and
other branches of mathematics and that would lead to the development
of tools that could be used by scientists outside of mathematics.